Large Scale Geometry and Topology

DMS-0204576
Kevin M. Whyte

This project is concerned with several aspects of large
scale geometry and topology. One of the main points of
study is the problem of producing actions from quasi-actions,
along the lines of the classical theorems of Sullivan and
Tukia. Such results have significant implications in the quasi-isometric classification of groups, especially for
groups with natural splittings as a complex of groups. A
second area of study is large scale versions of rigidity
phenomena in the geometry of symmetric spaces, and
specifically the classification of quasi-isometric embeddings
between symmetric spaces, giving a geometric analogue of
superrigidity. A third and independant project involves
coarse versions of topological rigidity, including the coarse
Borel, Novikov, and Baum-Connes conjectures.

Roughly speaking, large scale (or coarse) geometry is
the study of geometric properties of objects "seen from far
away". From this perspective, any bounded object is
indistinguishable from a point, and a line of dots is
indistinguishable from a solid line. This sort of geometry
has been influencial recently in many areas of mathematics,
notably group theory, topology, and geometric analysis. This
research will explore the large scale geometry of several
classes of mathematical objects, both classical geometric
spaces and objects only now being viewed in a geometric manner.